PRF/M: Molecular Evolutionary Systematics

The Mid-Career Fellowship will provide the PI with the opportunity to learn the methodology of molecular evolutionary systematics. The PI will work in the laboratory of Dr. Robert K. Jansen, University of Connecticut to learn the methods of restriction site mapping of chloroplast and nuclear ribosomal DNA for phylogeny reconstruction. Procedures to be learned include DNA extraction, restriction endonuclease digestions, gel electrophoresis, filter hybridizations and the maintenance of clone banks. Familiarity with the appropriate literature and with the methodology of restriction site mapping and phylogenetic analysis of restriction site data will be accomplished. The organisms to investigated include the coneflower genera Dracopis, Echinacea, Ratibida, and Rudbeckia and probable related genera in Asteraceae tribe Heliantheae. The objectives of the investigations, in addition to the training aspects, are to solve the status of problematic taxa within genera, achieve phylogenetic insights among species and genera of the study organisms, and determine the affinities of the coneflowers with other genera of the Heliantheae. Dr. Jansen is the leading authority on the evolutionary systematics of the Asteraceae and the PI will also have the opportunity to collaborate with Dr. KI- Joong Kim who has done considerable work on the tribe Heliantheae.